Interface Tools and User-System Interaction in Automatic Information Retrieval (Computer and Information Science)

This research is concerned with the design of interactive tools and procedures through which a user can enhance the effectiveness of automatic information retrieval. It includes the development of a graphic interface for the SMART information retrieval system and the experimental evaluation of the resulting system in such tasks as query expansion and reformulation, searching of clustered document collections, and the construction of knowledge bases with user-supplied information. Use of an enhanced SMART system with its existing evaluation packages makes it possible to compare the results of highly interactive searches with results obtained from better known methods of information retrieval. The principal investigator enjoys an international reputation as a productive scientist and a pioneer in the experimental analysis of information retrieval. He is supported by Karen Sparck Jones of the University of Cambridge, a noted authority on the design of retrieval experiments, and Donald Crouch of Tulane University, who has recently specialized in the graphical representation of information.